Collaborative Project: Augmenting Calibrated Peer Review-Responding to New Imperatives

The internet-based instructional tool Calibrated Peer Review (CPR) enables instructors to promote student understanding through writing, and develops student critical thinking skills through the process of evaluation and reviewing. The CPR program provides a template and a process to manage the submission and evaluation of writing assignments in any size class. Extensive adoption by faculty across the country since the program's first use in 1997 underscores the recognition of the power of writing to engage students and develop their critical thinking skills. The restructured and augmented CPR program allows an institution to maintain its own student's work and records on local servers behind firewalls while faculty continue to share and edit the growing assignment library.